CAREER: Optimizing Fiber-Optic Communication Systems Through Analytical Modeling of Linear and Nonlinear Signal Degradations

This research pursues the design and analysis of multiuser optical communication systems to increase the performance, distance, and capacity of existing and future systems. The focus is on the physical layer - i.e., the actual single fiber links that connect the nodes of large. The intense demand for more data, voice, and video in and out of every home and office has led to multiuser systems that are typically broadband and high power, sometimes leading to severe linear and nonlinear degradation in the signal due to properties inherent to the fiber. Mastering these physical limitations can translate into a hundred to thousand fold increase in capacity of existing infrastructure, with a potential savings of billions of dollars. The goal of this research project is to identify, characterize, and combat signal degradation in fibers, and to use this information to design the highest capacity multiuser systems. While the physical properties of fibers have been broadly measured and defined, the proper design of fiber systems to optimize signal properties for communications has not been fully considered. A tool has been developed that provides a method of obtaining an analytical closed-form solution of a nonlinear differential equation describing the propagation of optical signals through silica fiber. The result is a Volterra model for the fiber which can be used to both quantify the signal degradation due to the fiber and to design algorithms and devices to combat this effect. The model will be used to analyze the performance of optical TDMA, CDMA, and WDMA networks including realistic distortions such as intermodulation products, intersymbol interference, and multiple user interference. This same model will then be used to define signal processing algorithms and corresponding nonlinear devices to combat signal degradation. The possibility of creating a communication system that uses the soliton waveform in multiuser systems will be studied. Solitons are hi ghly desirable in that they take advantage of the nonlinear fiber effects to cancel pulse dispersion caused by linear effects. Finally, effects such as nonlinear polarization on coherent light communication systems will be analyzed using a modification of our Volterra model. The education portion of this study includes three new courses for improving the instruction of undergraduates and graduates in optical communications and multiuser communication at the University of Virginia. Two courses emphasize development of the optical communication system from the ground up (without relying on the usual RF analog), followed by a third course in multiuser communication, tied directly to this and related research. The primary goal of an educational institution to prepare the new generations for tomorrow can be accomplished only if the institution responds to the needs of the current and future students. One important aspect of this goal is to respond to the increased interest of women in the field of engineering. Following her hypothesis that women are socialized to find importance in issues of human and social concern, this researcher will be active in modifying the current methods of teaching engineering to show the link between technical methodology and the resulting products and services. Students will be encouraged to work within well defined groups that echo the work place environment. Being a female in a field that is in transition from being male dominated carries the responsibility of being a role model. Female engineering students will be especially encouraged to participate in a mentoring program instituted to promote success, a sense of belonging and strong self esteem. World-Wide Web Link: http://watt.seas.Virginia.EDU/~mb9q/